New Directions in Algorithms, Combinatorics and Optimization

This award will support an international conference entitled
"New directions in Algorithms, Combinatorics and Optimization".
The central theme of this conference will be combinatorics and its applications
in theoretical computer science and operations research. The conference will take
place in May 2008 on the campus of the Georgia Institute of Technology in midtown
Atlanta, and will honor the 65th birthday of William T. Trotter.

There are two main reasons for holding the conference in Atlanta, namely direct
flights from most of the world's major airports, and the presence of the PhD program
in Algorithms, Combinatorics and Optimization (ACO) at Georgia Tech, with its more
than 45 affiliated faculty and 40 students.

The conference program will consist of approximately 30 invited lectures, a poster
session and a problem session. The conference is expected to attract 200-300
attendees, including local, regional, national and international delegates. A
conference proceedings will be published as a special issue of the journal
Combinatorics, Probability and Computing.

The list of invited speakers includes only the leading experts and fine expositors.
The organizing committee consists of experienced senior researchers who will uphold
very high standards. Georgia Tech has excellent facilities to accommodate a
conference of this type.

Using federal support the organizers will be able to offer financial assistance to
attendees with no outside funding, including students, postdoctoral associates, junior
faculty, women, and underrepresented minorities, with priority given to young people
and members of underrepresented groups. While the main lectures will be by invitation
only, junior scientists will be able to present in the poster session and participate
in the scientific discussions throughout the conference.

A further aspect of broader impact is the interplay of mathematics, computer science
and operations research, that is already present in the ACO program at Georgia Tech.
This conference will further promote the fruitful interactions of these disciplines,
drawing upon the successful experience at Georgia Tech, and in doing so will further
strengthen the ACO program.

The conference proceedings will be stringently refereed subject to the standards of
premier combinatorics journals. Thus the conference will have lasting impact not limited
to its attendees.